Structural Effects on Spin-Polarized Quantized Conductance in Atomic-Sized Magnetic Contacts

TECHNICAL: Fundamental investigation of atomic-sized magnetic point contacts made of transition metals (such as Co and Ni) is a fertile ground for exploring new phenomena that are either entirely new or quantum analogs of effects observed in larger ensembles. The intellectual excitement lies in building a new knowledge base for the nascent field of nano- and atomic-scale spintronics. Currently, no direct understanding exists between the spin-polarized quantized conductance/magneto-conductance and underlying contact diameter/geometry. This gap is due to the previous unavailability of stable contacts. This barrier has been overcome from PI's previous studies, paving the way for such systematic studies. Specifically, this project is focused on gaining fundamental understanding of 'structure-property' relationship in atomic-sized quantum conductors, namely, relationship between contact diameter/geometry, multivalent state, and magnetic structure versus spin-polarized quantized conductance, magnetoresistance, and their temperature-dependence, using Co and Ni. The spin-polarized quantized physical properties will be directly correlated with the underlying contact geometry/structure using high-resolution transmission electron microscopy with in-situ quantized conductance measurements. Spin-polarized electron transmission across atomic-sized magnetic conductors can open new vistas for conceiving novel electronic devices that are far more intricate, dense, fast, and robust. The same force that produces magnetism can be harnessed to create 'valves' or 'gates' across an atom to regulate charge transport, in effect, making such an atomic-scale device a microcosm of a modern day electronic circuitry.

NON-TECHNICAL: The atomic-sized spintronics devices have potential applications in data storage. The same quantum exchange force also causes shifts in electronic levels, which in turn can alter electronegativity and excitation states - key factors to a fundamental understanding of elemental chemisorption, catalysis, and enzymatic reactions in biology. Education and outreach efforts will involve hands-on training for graduate, undergraduate, and high-school students in PI's laboratories. Outreach activities will include PI's participation in the SUNY-wide Louis Stokes Alliance for Minority Program for minority undergraduate students. A three to five-week summer apprentice program for minorities and women students from Buffalo-area inner city high schools will be offered. PI will develop a lecture/hands-on experimental module called "Discreteness of matter" using gold atomic-sized conductors, targeting both high-school students and undergraduate students. Module will demonstrate how conductance eventually becomes discrete (quantized) at atomic scale. Few experiments in science exist where quantum effects can be so readily demonstrated at room temperature, and with ease. The module would also allow ratio of two of the most fundamental constants (electron charge and Planck constant) to be measured directly - the unit of quantized conductance, and will be highlighted.